Presidential Faculty Fellows

The project will (1) investigate novel approaches to providing extremely efficient communication between protected domains running on the same machine, (2) develop tools for helping programmers tune the performance of applications limited by cache and virtual memory behavior, (3) develop new approaches to building ATM network switches to make them both easy to implement yet capable of delivering high performance, (4) investigate file system designs to improve scalability and to reduce power consumption, and (5) produce software for teaching undergraduate operating systems.